Integrated Models of Sea Level, Glacial Dynamics, and Isostatic Adjustment accounting for non-Newtonian Mantle Convection: Solid Earth-Cryosphere Interactions in Antarctica

The Earth system responds to the growth and decay of large ice sheets. As the ice sheets wax and wane, the underlying bedrock sinks and rebounds and the deep interior of the planet slowly flows in response, coupling the frozen surface to the solid Earth over thousands to millions of years. Antarctica sits at the heart of this coupled system, yet the vertical motions of its bedrock are large and only partly understood. Further, current models of the solid Earth's response disagree substantially with each other and with observations. This project develops improved physical models of how the solid Earth deforms as the large ice sheets change, clarifying how the mantle, the ice, and sea level have interacted through the last glacial cycle and how they will continue to interact. Sharpening this picture reduces a key source of uncertainty in reconstructions of past ice sheet behavior and in projections of future sea level change. The work is built on open-source, reproducible software and data tools that will be shared with researchers in other fields and with risk assessment practitioners. It also supports the training of an early career scientist in interdisciplinary research and engages high school and undergraduate students through Jackson School of Geosciences programs aimed at broadening participation in STEM.

Predictions of glacial isostatic adjustment (GIA) in Antarctica remain uncertain: vertical geodetic rates are broadly consistent with GIA only under rather extreme lateral viscosity variations, predictions from competing GIA models diverge substantially, and large residuals persist between modeled and observed uplift, suggesting that the underlying physical models are incomplete. This project investigates the role of non-Newtonian (power-law) mantle flow, combined with improved ice loading histories, in reconciling these discrepancies. Because the effect of power-law rheology depends strongly on the convective background stress, which is typically oversimplified, this project embeds GIA within a three-dimensional asthenospheric stress state derived from coupled global mantle circulation models that are validated against plate motions, the geoid, and seismic anisotropy. The resulting integrated GIA-convection framework incorporates heterogeneous lithospheric and mantle structure inferred from seismology and a power-law asthenosphere in which superposed flow geometries can produce effective mechanical anisotropy, together with self-consistent, time-variable dynamic topography. The research will quantify the geographically variable strength of GIA-convection coupling, for example contrasting strongly coupled West Antarctica with a simpler superposition in East Antarctica; test whether coupled bedrock deformation rates can reconcile existing model-data discrepancies via optimization against geodetic vertical and horizontal rates and relative sea level records; and reconstruct plausible Antarctic ice sheet evolution over the last glacial cycle to project future ice mass loss and associated sea level change.